Honolulu Community College Tribal Colleges and Universities Program (TCUP) Planning Grant

Through this award, Honolulu Community College will conduct an assessment of its Science, Technology, Engineering, and Mathematics (STEM) curriculum and infrastructure in order to develop an institutional action plan to improve STEM instruction. Project activities include: development of STEM course assessment instruments; development of a plan to recruit Native Hawaiians into STEM programs; outreach to potential industry, community, and/or educational partners to provide student internship opportunities; and, development of a tracking system for STEM students and graduates who transfer to four-year colleges and universities and for those that gain employment in STEM fields.